REU: Research Experiences In Computer Science for Students at Undergraduate Institutions

EIA-9911626
Berque, David
DePauw University

Research Experiences for Undergraduates: Research Experiences In Computer Science for Students at Undergraduate Institutions

Berque, DePauw University, CISE/REU sites The primary objective of this project is to encourage talented students enrolled at undergraduate institutions to pursue graduate study and research careers in Computer Science. The program directly impacts twenty-four students (eight per summer) by giving them first-hand experience with several of the most rewarding activities that characterize graduate study and research careers. research project topics are selected from the faculty mentors' current areas of interest. Students have full access to DePauw University's library and computing facilities including specialized equipment such as a 72" diagonal touchsensitive interactive whiteboard which supports some of the projects. Each student has several opportunities to present his/hers work more formally to other participants in the REU program, as well as to external audiences. Finally, the students have the chance to attend talks given by the faculty mentors and visitors, and to learn about the graduate school application process in part by visiting a major research university.